Acquisition of Rheometer and Laser for in situ Optical Measurements of Flow-Induced Structures

9625856 Pine Over the past ten years, University of California, Santa Barbara has become one of the premier centers for research on complex liquids and has made fundamental advances in the understanding of polymer solutions, colloidal suspensions, surfactant systems, and biomaterials. Research on these systems is highly interdisciplinary with participants from several departments including Chemical Engineering, Mechanical Engineering, Materials, Chemistry, Physics, and Biology. The study of the flow behavior of these systems has been a central and consistent focus, with many innovations being developed at UCSB. %%% This award is for the acquisition of a commercial fluids rheometer and an argon ion laser in order to develop a high performance measurement system capable of making simultaneous rheological and optical measurements. The instrument will be used to study the relationship between flow and structure in complex fluids. The rheometer is capable of making dynamic, transient, and steady state measurements of shear and normal stresses in macromolecular solutions and suspensions. To this rheometer, we will add the capability of performing several optical measurements including small and large angle light scattering, microscopy, and flow birefringence. The optical measurements will provide crucial information about structural changes which accompany rheological changes of the fluid under study. By simultaneously performing both rheological and structural measurements, this instrument will significantly advance the state-of-the-art and provide a unique and powerful tool for understanding the flow and processing of complex fluids. ***